Large-scale geometry of arithmetic groups and universal lattices

Abstract

Award: DMS-0905891
Principal Investigator: Kevin E. Wortman

The principal investigator intends to study four basic problems
about the large-scale geometry of arithmetic groups: "classical
arithmetic groups" such as SL(n,Z), "S-arithmetic groups" such as
SL(n,Z[1/p]), and "function-field-arithmetic groups" such as
SL(n,F[t]) where F is a finite field. The first problem is to
identify the Dehn function for SL(n,Z) if n > 3. Second, to
determine for which m a given function-field-arithmetic group is
of type FPm. Third, to develop a theory of fillings for
arithmetic groups that is inclusive of all types of arithmetic
groups, and that includes the first and second problems stated
above. Fourth, to verify what is conjectured to be the first
dimension of the cohomology of a function-field-arithmetic group
that is infinitely generated. In addition, the PI intends to use
the knowledge learned from the problems above to further
investigate the finiteness properties and word metrics of
"universal lattices", such as SL(n,Z[t]).

What all of the problems above include is the study of arrays of
numbers, called matrices. Being able to understand the arithmetic
of matrices is a fundamental problem in mathematics that has
applications to most fields of science and economics. As
mathematicians have done in the past with great success, the PI
intends to study the arithmetic associated with matrices by
bundling the equations they represent into a single geometric
theory.